Young Scholars Program in Math and Physics -- EARLY ALERT

The Interdisciplinary Science Center of Hampton University will initiate a three-week, residential Young Scholars (EAI) project in math and physics for 24 minority students entering grade 7. Participants will have an opportunity for math/physics enrichment working with Hampton University physics and mathematics professors as well as with scientists from a Department of Energy site, the Continuous Electron Beam Accelerator Facility (CEBAF).